Conference: Early Career Participation in the DPF 2026 Meeting

This award provides an opportunity for U.S. early career members to present at this prestigious conference. The DPF meetings are the largest gathering of the U.S. particle physics community, and they include substantial international participation. The 2026 DPF meeting will take place on July 20-24, 2026 at Fermilab. Notably, the DPF meetings provide an important venue for junior physicists to present their research works, to interact with senior, highly respected physicists, and to nurture their career development. The DPF 2026 will gather active researchers of all senior and junior levels together to discuss a broad range of topical issues in particle physics, recent developments in particle theory, future directions in high-energy experiments, and recent developments in accelerator, detector, and computing technologies. The meeting stimulates new ideas and encourages collaboration for future research.
The DPF meetings bring active researchers from related fields such as nuclear physics, astrophysics, atomic physics, and computational physics, stimulates innovative ideas and encourages multi-disciplinary collaboration. They also offer an excellent venue for engagement of our scientific community as well as the general public in broader impacts through public lectures and outreach programs.